Fast, Flexible, and Accurate Covariance Models for Gaussian Processes

Gaussian process models have become the backbone of a wide variety of prediction and uncertainty quantification applications in machine learning and artificial intelligence. The behavior of these predictions and model-implied uncertainties depends critically on the covariance function, which fundamentally dictates how informative given data is about unknown quantities being predicted. Naturally, as modern datasets become both larger and more detailed, covariance functions need to become more flexible to ensure that practitioners can extract value from the new details that increased resolution and data sizes can reveal. Unfortunately, traditional options for covariance functions make this challenging. An additional challenge is that large datasets often render traditional model-fitting methods computationally infeasible. The approaches in this project address both challenges simultaneously and are broadly applicable across many data and application settings. With careful design, they also abstract away burdensome software technicalities, offering improved functionality with no additional technical overhead for practitioners. The project also offers research training opportunities for graduate and undergraduate students.

The primary mechanism by which these goals are achieved is the exploitation of the favorable theoretical and numerical connections between covariance models and Fourier methods. Since model validity is much more easily confirmed in the Fourier domain, emphasizing model design there makes it straightforward to integrate new and useful degrees of freedom in response to data features. Computationally, several of the most important algorithms of the twentieth century---particularly the fast Fourier transform (FFT) and subsequent nonuniform extension (NUFFT)---can be used to dramatically accelerate the computational procedures for fitting and working with these models. Approximate inference methods using sparse precision matrices and high-accuracy matrix-vector products that are accelerated by Fourier algorithms additionally provide precise and easily interpretable theoretical guarantees that balance runtime cost and statistical efficiency. Polished, easy-to-use software will be produced to make the use of these more flexible models a drop-in replacement for current popular models that offer materially less flexibility.